Silicon and Germanium-Containing Nanocrystals, Nanorods and Nanowires

Brian A. Korgel from the University of Texas at Austin is supported by the Macromolecular, Supramolecular and Nanochemistry Program of the Division of Chemistry in research focusing on new chemical routes to silicon- and germanium-containing nanocrystals, nanorods and nanowires with precisely controlled dimensions. Novel reaction pathways are being developed to provide exquisite control of reactant decomposition, semiconductor formation and crystallization, and effective surface passivation. For the study of quantum confinement-related optical and electronic properties, silicon and germanium nanomaterials in the quantum size range are synthesized with the ability to manipulate shape and chemically passivate surfaces. Silicon and germanium-containing iron chalcogenides, Fe2MS4 (M = Si, Ge), are also being synthesized and studied for photovoltaic applications, as new photocatalyst analogs to the earth-abundant semiconductor, pyrite FeS2, or "Fool's gold" and as alternative electrode materials for next generation lithium ion batteries.

Silicon- and germanium-based nanomaterials have a variety of applications in energy storage and solar energy utilization. Specifically, they have applications in medicine, for transistors and displays, as electrode materials in lithium ion batteries, as novel photocatalysts, and as photovoltaic devices. The silicide and germanide compounds targeted in this study represent a new class of photocatalysts and light-absorbing films in photovoltaics made of earth-abundant materials. This project also supports the education and training of graduate and undergraduate students, along with additional educational activities that include visits and demonstrations to local primary and secondary schools, teacher training, and undergraduate education efforts involving nanotechnology, such as the development of a new freshman course on commercialization and innovation, team-taught with colleagues from the business school.